Conference-Workshop on the Repair and Rehabilitation of the Infrasturcture of the Americas to be held in Puerto Rico in August 29-31, 1994

9403226 Toutanji A conference/workshop is scheduled for August 29-31, 1994 at The University of Puerto Rico at the Mayaguez campus. The conference/workshop will discuss repair/rehabilitation of the infrastructure of the Americas. Papers will be presented, and a session will be devoted to research projects which would be of common interest and coordination between researchers of different countries. ***